Developing a State of the Art Website for the National Earth Science Teachers Association to Advance K12 Geoscience Education

This project is developing a state of the art, community-based web site for the National Earth Science Teachers Association (NESTA) that will provide access to educational resources across the geosciences at all grade levels; offer access to professional development opportunities for geoscience educators; support the development and nurturing of online communities; and address the needs of the diversity of students reflected in the changing U.S. population. Web tools for accessing available online educational materials, sharing resources between teachers, linking partner organizations, and providing online mentoring will be developed and maintained.